Acquisition of a Time-Resolved Step-Scan Fourier Transform Infrared Spectrometer

With support from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at Duke University will acquire a time-resolved, step-scan Fourier-transform infrared spectrometer. This instrument will support research in a number of areas, including a) characterization of the intermediates in the photoreactions of melanins; b) electron distribution in MLCT states and photo dynamics of heme proteins; c) excited state electronic structure of novel ruthenium (II) complexes used for probing DNA electron transfer; d) investigation of second-coordination shell dynamics in iron (III)-siderophore chelation reactions; e) evaluation of the formal redox state of nitric oxide in s-nitrosated hemoglobins; and f) protein folding dynamics.

The general effectiveness of Fourier transform spectroscopic techniques in academic and industrial research has been firmly established. Many advanced spectroscopic courses now routinely include the teaching of FT spectroscopy. The time-resolved capability is one of the most important recent developments in FT spectroscopy that is rapidly being explored for all kinds of research. Recent applications include biological, polymer, and environmental studies. These studies will have an impact in a number of areas, especially biochemistry.